Mechanisms and Evolution of Behavior

This research involves population and behavioral studies of the superb fairy-wren, a species of bird that lives in Australia. This work will contribute to our knowledge about the biology of this species and the avifauna of Australia generally. More important, it will add to our understanding of evolutionary processes affecting reproductive biology and social behavior of nonhuman species. Superb fairy-wrens are interesting because they live in large social groups, the offspring from one generation remain in the territory and help the parents raise young in successive breeding attempts, and social mates are often related to each other. This great potential for inbreeding among closely related individuals appears to have been solved by fairy-wrens in what may be a unique manner: females in each group mate promiscuously with males from other groups. This research is attempting to verify and study the mechanisms by which individual fairy-wrens avoid inbreeding and the relationship between the species' mating system and the patterns of morphology and plumage coloration. As the research uses molecular techniques in determining the patterns of mating, the work will also add to our knowledge of genetic variation within and among families in this species, and the use of DNA fingerprinting as a means of identifying sires of offspring.